Wearable Information Systems for Construction Site Management

The objective of this research is to create a "wearable" information system device that can be used by supervisory personnel that provides up-to-date project information such as budget, schedule, and change order details and enables the supervisor to easily and accurately record job progress and construction site conditions. The research will focus on the creation of a prototype apparatus using commercially available components such as a portable micro- computer, a miniature display monitor, a voice recognition system, and a bar code reader. The interfacing devices( monitor, microphone, and speakers), will be fitted to a standard construction hard hat. Additionally, a voice-activated menuing system will provide the field supervisor with an array of site management applications. Finally a detailed set of design specifications will be developed which can be used to construct the next generation of wearable information systems for construction sites.